Collaborative Research: SHF: SHARP: Achieving Scalable Blockchain Sharding via Software and Hardware Optimizations

Blockchain technology has the potential to revolutionize digital finance, secure data exchange, decentralized marketplaces, supply chain operations, and emerging internet services. Despite this promise, existing blockchain platforms face severe scalability constraints and can process only a limited number of transactions per second—far below the demands of practical, large-scale applications. Blockchain sharding has emerged as a promising solution by dividing the network into smaller groups that execute transactions in parallel. However, key challenges persist, including cross-shard communication delays, workload imbalance, high transaction verification overhead, and the cost of shard reconfiguration. With the support of Artificial Intelligence (AI) methods, this project addresses these limitations through coordinated innovations spanning algorithms, system design, and hardware architecture to enhance the scalability, efficiency, and energy performance of sharded blockchain systems. In addition, the project supports open-source research, workforce development, and research-driven education by engaging undergraduate, graduate, and K–12 students in blockchain and computing research activities.

This project develops a comprehensive cross-layer framework to overcome core scalability and efficiency barriers in sharded blockchain systems. At the algorithmic layer, the research develops a Graph Neural Network (GNN)-based shard formation method that organizes shards according to user interaction patterns and network evolution trends. It also introduces a layered trie structure, based on an extended Merkle Patricia Trie (eMPT), to accelerate state synchronization and node lookups during shard reconfiguration. At the systems layer, the project designs transaction-buffering mechanisms to minimize cross-shard communication and develops adaptive hot-shard-splitting techniques to dynamically address workload imbalance. At the hardware architecture layer, the project creates specialized accelerators for transaction verification, including a systolic architecture that leverages arithmetic-level parallelism to accelerate multi-scalar multiplication through GLV (Gallant-Lambert-Vanstone) decomposition, as well as a content-aware caching mechanism that exploits locality in sender-specific cryptographic state to reduce redundant verification operations. The project further evaluates the security and correctness implications of all proposed optimizations. The recent advances in AI will be incorporated in each research task to improve accuracy and efficiency. Collectively, these innovations are expected to improve blockchain throughput by 3×–5× compared with current systems, while advancing research in scalable decentralized systems, computer architecture, and heterogeneous computing.